Improvement of Calculus Laboratory and Extension of Laboratory Concept

Students are learning by exploration and experimenting with graphs in pre-calculus using the text by Demana and Waits. The learning experience is enhanced by an expanded computer laboratory with Macintosh computers running Mathemtica. The former laboratory supported a revised calculus curriculum and the expanded laboratory will enhance these improvements and revised courses in linear algebra, differential equations, and multivariable calculus.